Transforming Undergraduate Physics Laboratory Using New Technologies

This project extends the tools of the traditional physics laboratory to include microcomputers and laservideo. It brings into the laboratory measurable physical phenomena from the real world, such as athletics, or events that need time compression or expansion. A MacII based workstation is used at IUPUI and one at University of Nebraska. NorthPark and the New Hampshire Technical Institute are equipped with IBM compatible hardwae. The workstations include a microcomputer with real time video in a window and frame capture capability, a laserdisc player, and a data acquisition board. During the Fall 1991 semester a software shell and four laboratory exercises will be created. During the Spring 1992 semester all four labs will be used in regular physics classes at all four institutions. The results will be disseminated in workshops at the summer 1992 AAPT meeting. Help will be solicited to develop a complete set of lab exercises for the standard one year introductory physics course.